SHF: Small: Taming the Combinatorial Explosion of Power Management for Future Manycore Systems

We will soon enter the manycore era, in which systems will include
hundreds of cores, large multi-level cache structures, sophisticated
networks-on-chip, many memory controllers, and huge amounts of main
memory. These systems will also embody a rich array of power
management mechanisms and will strive to achieve high performance
under various power, energy, and thermal constraints. Unfortunately,
the uncoordinated power management of a system's components can
produce oscillating behavior, higher power/energy/temperature, and/or
excessive performance degradation. Given their large number of
hardware components and the wide spectrum of available mechanisms,
manycore systems will have to coordinate the actions of their various
power managers. Moreover, to decide on a (coordinated) course of
action, these systems will have to comprehensively and rigorously
reason about various performance and power/energy/temperature
tradeoffs.

This project will develop global power coordination (GPC) to manage the
combinatorial explosion of possible power management configurations in
manycore systems. GPC will be realized using an engine that analyzes
the space of possible power state configurations for the entire
system. It will then decide which configurations are most appropriate,
and use per-component power managers to actuate the proper settings.
To optimize the search for good configurations, GPC will consider
greedy search heuristics that prune the space by relying on novel
techniques that estimate the benefit of power state changes, group
resources with similar power management hooks, and leverage prior
observed behavior and a hierarchical organization.

This project will broadly impact society in many ways. First,
addressing the power, energy, and temperature problems of manycore
systems can greatly impact the datacenters that run our Internet
services and the high-performance systems that advance our science.
Second, tackling these problems will address one of the key
technological barriers in the computing industry. Third, the project
will educate graduate, undergraduate, and high-school students, while
broadening the participation of underrepresented groups in computer
science.